SGER: Optical Data Storage and Processing by Photon Echo

The Principal Investigator is developing a research program in a novel concept of high-density, high- speed optical memory and optical computing based on photon echoes, that has inherent potential for massively parallel real-time processing of temporally as well as spatially encoded data. Photon time- delayed laser pulses pass through a resonant atomic system. The system responds by emitting, after a certain delay time, a burst of laser-like light. This is the echo. By studying the relaxation, modulation, polarization, etc., of the photon echo signal, much detailed information about the dynamic interactions within the atomic system can be obtained. On the other hand, the fact that the atomic system emits a light pulse of some time after the passage of laser pulses, implies that the system somehow remembers. This is the basic optical memory concept of photon echoes.